Superconvergence of p-version/spectral collocation, discontinuous Galerkin methods and eigenvalue approximation

The investigator and his colleagues study the
superconvergence phenomenon and its recovery of several
major computational methods in science and engineering.
The research objectives include (1) to develop a
superconvergence recovery technique and associated error
estimator for discontinuous Galerkin method; (2) to enhance
the eigenvalue approximation by recovery techniques; and
(3) to investigate superconvergence phenomena of p-
version/spectral collocation methods. Some recent
mathematical theory in finite element superconvergence,
discontinuous Galerkin methods, as well as domain variation
techniques in the PDE theory and classical results in
approximation theory will be employed in the project.

The study is of great importance for the adaptive design of
computational algorithms and has a direct application in
engineering computation. The success of the project will
bridge a gap between engineering practice and mathematical
theoretical development and widen the knowledge in the
scientific community. The project has solid multi- and
interdisciplinary contents and wide application in the
software industry.